Modern Chemistry Tools: Theory, Practice, and General Chemistry Experiments

9353947 Russell The project will address the needs of community college faculty in learning the latest in modern chemistry methods through a workshop involving exposure to modern instrumental methods as well as computer simulation techniques to allow instructional experience on equipment not readily available to their students. Senior research faculty at UCLA will give lectures on molecular modeling, computational chemistry, multinuclear NMR, GC-MS, Fourier Transform infrared spectroscopy, and scanning tunneling microscopy. The workshop participants will solve typical student problems in these areas; they will learn to use the instruments, and they will adapt existing UCLA freshman chemistry instructional modules using these techniques to their own settings. ***